Tailored Interphases for High-Strength and Functional Composites - Advances in Experiments, Simulations and AI-Based Designs

The project will support the Symposium CT04: "Tailored Interphases for High Strength and Functional Composites ? Advances in Experiments, Simulations and AI-Based Designs", at the 2020 Spring Meeting of the Materials Research Society (MRS) during April 13-17, 2020, at the Phoenix Convention Center. The symposium will bring together many of the world’s leading experts in composites research, which has applications in defense, aerospace, and commercial transportation technologies. The project also supports the mission of MRS as the world's foremost international scientific gathering for materials research to showcase leading interdisciplinary research in both fundamental and applied areas. The symposium organizers are part of a team of 200 scientists from academia and industry in many countries around the world that coordinate the MRS meeting and technical programming. The symposium will bring together leading scientists, junior scientists, and attendees from an interdisciplinary research community to foster idea exchange and new collaborations in the topical area of composite materials and data driven design of complex materials.

The objective of this project is to pay travel costs for invited speakers, students and early-career researchers participating in the symposium. Funds will be specifically directed to invited and contributed speakers with disabilities, underrepresented minorities, and women. The project will also support young, diverse US-based researchers such as assistant professors and researchers in equivalent positions in other work sectors, post-doctoral scholars, and students. Recruitment efforts for minority presenters and broad participation from various related disciplines will be made. The symposium aims at better connecting scientists and engineers with expertise in different research fields related to structural and functional composites, such as physics, materials science, chemistry, engineering, bioengineering, and data science to advance cutting-edge research tools and design materials for transportation, aerial vehicles and aerospace technology. Specifically, research areas to be covered in the symposium include self-assembly and directed assembly of polymers, biopolymers, and colloids at ceramic and mineral interfaces, including graphitic, CNT, and BNNT based composites, nanoscale confinement of polymers near interfaces, as well as interfacial chemistry and reactions of materials to generate high strength. In-situ nanoscale mechanics and atomic-scale interfacial mechanisms, atomistic, coarse-grain, multiscale, and AI models of interphases and composites, interphase properties in biomimetic and bio-inspired composites, as well as advances in experiment, simulation, and artificial intelligence related to processing and property prediction will be discussed.